NSF Young Investigator

This is a National Science Foundation Young Investigator Award. The goal of Dr. Caplan's laboratory is to identify the cellular machinery involved in the generation and maintenance of epithelial polarity. This will be done using the powerful tools of Drosophila genetics. A screening procedure already developed in the laboratory, together with P-element mediated mutagenesis, will be used to identify mutants carrying genetic alterations relevant to epithelial polarity. Genes identified through this process will be cloned and their protein products will be characterized. %%% This is a National Science Foundation Young Investigator Award. Dr. Caplan is interested in the fundamental and important question of how epithelial cells "know" how to maintain a distinct "up and down" polarity. This is a critical question, since the proper function of epithelial cells is dependent on this polarity (e.g., pumping of ions from one side of an epithelial cell layer to the other; secretion of hormones, enzymes, or mucous lubricants to the appropriate place; uptake of nutrients from the alimentary canal; etc.). Until now, cell biologists have addressed the question by direct observation and biochemical manipulation of epithelial cells. Dr. Caplan is developing a clever and novel approach to the problem by exploiting the powerful techniques of Drosophila genetics, which have already proven enormously useful in studies of development.